Sedimentary Analysis of Glacial Deposits, West-Central Minnesota

The Division of Science and Mathematics is acquiring equipment for use by undergraduates in the study of sedimentary processes, Quaternary deposits, the fundamentals of laboratory analysis, and in an ongoing student research program. The instruments are enabling curriculum changes to be made that promote the understanding of sedimentary processes, and develop fundamental skills of analytical techniques via a three stage curricular approach: introduction of concepts and skills; skill development, and; application. Undergraduates engaging in research are studying the origin and history of glacial deposits in west central Minnesota using sediment and provenance analysis.***//